CT-M: Understanding the Underground Economy

Recent years have witnessed a dramatic change in the goals and modus
operandi of malicious hackers. In particular, hackers realized the
potential monetary gains associated with Internet fraud. As a result,
there has been an integration of sophisticated computer attacks with
well-established fraud mechanisms devised by organized crime. This
process has created a vibrant underground economy.

Recent research has mostly focused on the visible aspects of the
underground economy, such as botnets, spam, and phishing. However,
little has been done to understand this economy as a whole and to
analyze and model its characteristics. What is needed is a holistic
approach to the study and analysis of the underground economy that
includes all aspects of the criminal process. In this project, novel
techniques and tools are developed that help to analyze the
underground economy and obtain a comprehensive picture of the complete
criminal process. More precisely, the underground economy is analyzed
and modeled from two different vantage points: First, the analysis
identifies the actors participating the underground economy and models
their different roles. Second, the analysis examines the
infrastructure that is used by criminals to carry out their
operations.

The results of this project are techniques and tools to gather
information about the infrastructure of the underground economy and
the involved actors. The broader impact is a reduction in the amount
and severity of crime performed in the Internet. Moreover, the results
of this project support the task of cyber crime law enforcement in
their fight against the underground economy.